Purchase of Mass Spectrometric Instrumentation

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of California in Los Angeles will acquire a Gas Chromatograph-Time of Flight Mass Spectrometer. This equipment will enhance research in a number of areas including a) development of new synthetic methods and total synthesis of biologically interesting natural products; b) studies on singlet oxygen chemistry; c) supramolecular and macromolecular chemistry; d) ubiquinone biochemistry; e) conducting polymers; and f) structural characterization of bioactive oxidized lipids and lipid second messengers of these phospholipids.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including biochemistry and materials science.